Educating the Growth Network Operations Work Force

As regional and national networking infrastructure matures, so does the work force needed to operate and maintain it. New network operations centers (NOC) personnel must digest information about a perplexing mixture of devices and software for monitoring, updating, and maintaining the network and reporting the necessary statistics. This document proposes production of a videotaped course built on the foundation of experience gained during the past year in which the OARnet engineering staff carried out ongoing classroom training in network operations. A workbook will also be compiled and will accompany the videotaped instructions. Training will greatly increase productivity and the ability to take on more responsibility for complex network monitoring and problem solving.